Support of ILI/CSIP Symposia at National ACS Meetings

The project will organize symposia at the Fall 1993, 1994, and 1995 National American Chemical Society Meetings to report, by the appropriate Principal Investigators, results from projects supported by the NSF Instrumentation programs. The choice of presentations will be made via review of abstracts submitted as the result of solicitation to former Principal Investigators in these programs. This project will fulfill the desired broad dissemination of information and resources developed at the host institutions.